Development of Innovative Statistical Tools in Design of Scientific Experiments and Surveillance Studies

Providing flexibility to an experimenter in ensuring efficient and cost-effective data collection methods in pharmaceutical, biotechnological, agricultural and engineering studies have thrown up unprecedented challenges to the design theorists. The investigator develops innovative design-based techniques, in the classical sense as well as in the context of factorial experiments and crossover designs with immediate applications in such areas as biopharmaceutical trials, drug abuse liability trials, and evaluation of new drugs for unwanted effects on electrical properties of the heart, which includes QT/QTc trials in safety assessment. The issues of timely detection and prevention of various types of adverse health events such as drug toxicity, are gaining importance in surveillance related to public health and phase IV clinical trials. The investigator also explores and develops relevant innovative surveillance strategies and examine their relative performance with respect to several well-known optimality criteria and with reference to the role of statistical indicators [such as false alarm rate, delay time for true alarm, in-control average run length]. The investigator examines strategies for determining how frequently and how efficiently the adverse event rate should be monitored in the sense of timely detection and intervention, incurring minimal cost.

The project develops innovative statistical theory and related computational methodologies in resolving some critical design and surveillance issues, not adequately addressed hitherto, covering such areas as pharmaceutical, biotechnological, agricultural and engineering studies. Researchers learn about cutting edge techniques to deal with some real life problems such as(i) the effects of environmental factors on quality of drug substance or shelf life for drug product or storage conditions, (ii) surveillance issues in medical sciences and public health [complicated cases of pregnancies, pandemic influenza, West Nile virus, severe acute respiratory syndrome [SARS], emission of radiation from hazardous pollutants in air / surface / water] and in drug toxicity study in Phase IV clinical trials. Practitioners utilize the findings for more insightful experimentation and data collection techniques in these fields. Advanced Undergraduate and Graduate students are trained in the statistical methods.